Travel to Attend: International Symposium on Cavitation; Sendai, Japan; April 16.1986

This action provides round-trip air fare for an investigator to travel to Sendai, Japan, to participate in and present a paper at the International Symposium on Cavitation, April 16-19, 1986. His work on marine propeller noise is recognized, and the prospect of gaining current international perspective at first hand in the field of marine noise and cavitation is of national importance.